Molecular Basis of Stability and Folding of Proteins

9600991 Garcia-Morena The main goal of this research program is to determine the detailed sequence of molecular events that leads to transitions between native and denatured states of proteins. Dr. Garcia-Moreno is studying the energetics of acid denaturation of staphylococcal nuclease with equilibrium thermodynamic methods. An extensive collection of mutants where ionizable residues have been substituted by uncharged amino acids will be used to determine the role of individual ionizable residues. The emphasis is on resolving the contributions by individual residues because that is the level needed to advance our current understanding of the mechanisms of stability and folding of proteins. Another goal is to characterize the physical and structural properties of compact denatured states of nuclease, and to establish the molecular determinants of the electrostatic effects that poise for denaturation by acid. Dr. Garcia- Moreno's research is intimately interwoven with his teaching and training of students at the graduate and undergraduate levels. %%% The stability of a folded protein is always defined relative to a protein in a denatured state. While much is already known about the structure and physico-chemical character of folded proteins, those of denatured proteins remain largely unexplored. In order to understand fully the relationship between the structure of a protein and its stability it is necessary to understand better the denatured state. Denatured proteins do not necessarily exist as truly random, unfolded polypeptides. Many denatured proteins are compact and retain many of the structural and physical attributes of the fully folded protein. Dr. Garcia-Moreno hopes to gain insights about the manner in which proteins achieve their folded state by determining the sequence of events that leads to transitions between folded and denatured proteins. He will also study some of the noncovalent forces that stabilize proteins in compact denatured st ates. Nuclease is a protein well suited for these studies because it is not very stable and can be coaxed into compact denatured states easily with acid, temperature or chemical denaturants. Dr. Garcia-Moreno is developing courses in molecular physiology and in protein thermodynamics where graduate and undergraduate students will learn the fundamental of macromolecular structure, energetics and function by using computers to analyze high resolution structures graphically, to predict energetics from structure, and to simulate complex phenomena such as the conformational transitions that he will study in the proposed research. ***